Integration of Capillary Electrophoresis into the Chemistry Curriculum: Biochemistry, Analytical and Honors General Chemistry

The aim of the project is the development of capillary electrophoresis (CE) experiments in Honors General Chemistry, Instrumental Analysis, and Biochemistry courses. The instrumentation needed includes CE with a fluorescence detector and a continuous wavelength detection system, software, and a printer. This equipment is as an integral part of the laboratory component of these courses. The laboratory experiments enable the student to experience firsthand the separation principles that are taught in the course lectures. Examples include protein analysis, peptide sequencing, DNA fragment analysis, and small molecules in biological and environmental samples. In addition, students use this modern instrument to do research during the academic year and summer. The significance of the project is that students will be trained in a state-of-the-art bioanalytical technique. The addition of a capillary electrophoresis instrument enhances the teaching efforts in Honors General Chemistry, Instrumental Analysis, and Biochemistry.